Belmont Forum Food-Water-Energy Nexus: Integrated analysis and modeling for the management of sustainable urban Food Water Energy Resources

Many cities across the globe are facing difficult challenges managing their food, water and energy systems. The challenges stem from the fact that the issues of food, water and energy are often tightly connected with each other, not only locally but also globally. This is known as the Food-Water-Energy (FWE) nexus. An effective solution to a local water problem may cause new local problems with food or energy, or cause new water problems at the global level. On a local scale, it is difficult to anticipate whether solutions to one issue in the nexus are sustainable across food, water and energy systems, both at the local and the global scale. Innovative solutions that encompass the nexus are particularly important to enable cities to better manage their food, water and energy systems and understand the benefits and tradeoffs for different solutions.

This award supports U.S. researchers participating in a project competitively selected by a 29-country initiative through the joint Belmont Forum- Joint Programming Initiative (JPI) Urban Europe. The Sustainable Urbanization Global Initiative (SUGI)/Food-Water-Energy Nexus is a multilateral initiative designed to support research projects that bring together the fragmented research and expertise across the globe to find innovative solutions to the Food-Water-Energy Nexus challenge. The call seeks to develop more resilient, applied urban solutions to benefit a much wider range of stakeholders. The rapid urbanization of the world's population underscores the importance of this focus. International partners were invited to develop solutions for this challenge. The funds requested will be used to support U.S. participants to cooperate in consortia that consist of partners from at least three of the participating countries and that bring together natural scientists, social scientists and research users (e.g., civil society, NGOs, and industry). Participants from other countries are funded through their national funding organizations.

This project seeks to develop a shared urban data and modeling framework to help cities analyze and characterize FWE systems and nexus interrelationships. The framework will utilize a common urban 3D data model that will be shaped by urban stakeholder requirements and be applicable to regions and cities in Europe and the United States. This framework will help stakeholders identify, quantify and visualize cross-sectoral and cross-media impacts to FWE systems from various decisions -- from urban development strategies to FEW infrastructure investments. The results will provide data that can help cities across the globe sustainably provide energy, water and food supplies under healthy and economically productive conditions.